The Global Engineering College: Integrating International Training into Engineering Education

PROPOSAL NO.: 0230421
PRINCIPAL INVESTIGATOR: Doerry, Eckehard
INSTITUTION NAME: Northern Arizona University
TITLE: The Global Engineering College: Integrating International Training into Engineering Education

Abstract

The most significant development in modern engineering over the last decade has been the increasing globalization of corporate economies. Today's engineering graduates are regularly asked to collaborate with colleagues of diverse backgrounds and who are working at sites or with affiliate companies around the world. Specifically, modern engineering practice requires competence in novel collaboration and communication skills in addition to the technical skills taught in traditional engineering curricula. These skills include, for example, collaborative teaming and team management skills, cross-cultural communication skills and the ability to perform on geographically distributed teams. This project will undertake plans to infuse the engineering curriculum with opportunities for international experiences.